US-China Cooperative Research: Permian Ammonoid Biofacies and Biostratigraphy of China and North America

This award supports cooperative research between Brian Glenister, University of Iowa, and Zhou Zuren, Nanjing Institute of Geology and Paleontology, Chinese Academy of Sciences, on the Permian period, a time of profound physical and biotic change. Biostratigraphy is a fundamental base for much of the basic and applied work in geology, and this proposal promises to contribute to establishing a Permian global stratotype. Through ongoing investigation of the Permian systems and its ammonoids, valuable collections available in China and the US can be documented and correlated under this collaboration.